Control of Microtubule Assembly in the Mitotic Appartus

The cell's mechanism for regulating microtubule assembly in the cytoskeleton and mitotic apparatus during mitosis remains undefined. This laboratory has demonstrated that control of intracellular calcium is essential for mitotic regulation, and has isolated and reconstituted the mitotic apparatus calcium pump and a putative mitotic apparatus calcium channel. In collaboration with Drs. Shinya Inoue and Osamu Shimomura, Dr. Silver has succeeded in quantitative imaging of calcium with the photoprotein aequorin and single photon video imaging. The next goals of this project are to continue the enzymatic and biochemical characterization of the mitotic apparatus endomembrane calcium pump and calcium channel, to elucidate the temporal limits imposed upon regulation and coordination of pathways required for mitosis that are managed through the cell cycle clock, to elucidate the role of phospholipase activity and specific products of phospholipid metabolism in regulating intracellular calcium during mitosis, and to continue quantitative two-dimensional imaging and computational analysis of the spatially and temproally regulated transicent calcium signals that control mitosis using the photoprotein aequorin and single photon digital video light microscopy. Cell division involves the ordered remodeling of microtubule, microfilament, intermediate filament, and endomembrane arrays within the cell. The cellular mechanisms initiating and carrying out cell division (mitosis) are, as yet, not understood, but a considerable body of evidence suggests that transient elevations of intracellular free calcium are essential in signaling specific mitotic events. The goal of this research is to understand how and where in the dividing cell changes in calcium levels take place. A detailed understanding of the regulation of intracellular calcium within the mitotic apparatus will provide deeper insight into the mechanisms controlling cell division.